PostDoctoral Research Fellowship

This award is made as part of the FY 2018 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Sarah Cannon is " Mathematical Foundations of Markov Chains". The host institution for the fellowship is the University of California, Berkeley and the sponsoring scientist is Alistair Sinclair.